RI: Small: Taming Combinatorial Challenges in Multi-Object Manipulation

A key challenge in many autonomous robot manipulation applications is
the rearrangement of multiple objects. There are two situations where
such needs arise: (i) the manipulation task itself is to rearrange
objects, and (ii) occluding items must be rearranged to allow the
robot access to the target object(s). Examples of such scenarios can
arise in warehouses and industrial setups, where a robot has to
frequently select, pick and transfer products, packages and pallets in
the presence of many other similar objects. Another example comes from
service robotics, where a robotic assistant that operates in a human
space has to frequently retrieve or rearrange multiple items placed in
narrow spaces, such as objects in shelves.

This project investigates which classes of multi-object manipulation
planning can be efficiently addressed given progress in multi-body
motion planning and develops a powerful suite of novel computational
solutions. The key insight is that for many real-world rearrangement
tasks the sequence of object motions to solve the problem, ignoring
grasping aspects, look similar to solutions of multi-body motion
planning, especially for similar sized objects. The study of this link
reveals it is possible to cast certain multi-object manipulation
problems as a "pebble motion problem on a graph", which is well
studied in algorithmic theory and multi-body motion planning. The
overall objective is to provide rigorous methods with desirable
completeness and optimality guarantees for multi-object manipulation,
which exhibit good scalability and efficiency for problems where
current methods face issues with the inherent combinatorial
complexity. Such methods could also be used as guiding heuristics for
tasks with additional constraints, such as non-trivial dynamics and
uncertainty.